Statistics Leaders in the Palmetto State

9355751 Luedeman This is a 4-year project to prepare a cadre of 39 teachers and 13 college professors to take on leadership roles and become resources to support the introduction of statistics into the mathematics curriculum of South Carolina middle and high schools. To these ends, the prospective leaders participate in a program of 2 sequential 3-week summer institutes. The Summer 1 institute program focuses on data analysis and probability; the Summer 2 program, on estimation, decision making and hypothesis testing. In addition to providing content background, the institutes also provide the participants opportunities to; adapt existing exemplary materials (STAT-LINC) to the needs of their respective schools; develop their own teaching units; get leadership training; and examine how the new topics in statistics can be fitted into the already crowded mathematics curriculum. Participants are selected state-wide in 13 teams, each team consisting of 3 middle and high school teachers, and 1 college professor. Upon returning home, the teams take up (part-time) residence at the State SSI's 13 regional resource centers (HUBS) in order to act as resources in probability/statistics for their respective regions. In Years 3 and 4 of the project, there are a number of regional conferences designed to begin to involve other teachers. Plans also call for holding an evaluation session, and staff and participants make presentations at various state, regional, and international conferences. Cost-sharing is about 25% of the NSF contribution.